ME: Strategies for Metabolic Engineering of Environmental Microorganisms - Applications to Degradation of Organophosphate Contaminants

This proposal seeks to develop the experimental and theoretical
methods to introduce multiple, heterologous, biodegradation
pathways into a single organism and optimize the flux through
those pathways for the remediation of toxic or recalcitrant
organic contaminants. The project will focus the biodegradation
of parathion as a model compound since: (1) it has been widely
used as a pesticide; (2) it could potentially serve as a source
for carbon, phosphorus, and sulfur for cell growth; (3) no single
organism has been isolated that can use parathion as a sole carbon
and phosphorus source; and (4) it is similar in structure to a
number of other important environmental contaminants, such as
nerve agents and other pesticides. An engineered form of
Pseudomonas putida will be used as a model organism.